Workshop and Assessment of New Technologies for Rapid Detection of Infectious Diseases, January 1, 2013 - December 31, 2013, University of Alabama Birmingham

ABSTRACT

The purpose of this proposal is to examine the potential of exploiting recent advances in photonics and nanotechnology in the development of new low-cost technologies for rapid detection of infectious diseases. The specific aims are as follows:

Specific Aim 1- Examine Current Grants and identify key active researchers (subcontract to InnoPace Systems, Inc)
Task 1.1 Examine NSF Grants in ENG and other Directorates
Task 1.2 Examine NIH and other agencies Grants in this space
Task 1.3 Examine Publications and Patents of grantees
Task 1.4 Use results of Tasks 1.1 to 1.3 to Identify researchers with high impact publications and/or inventions

Specific Aim 2 Examine, identify and demonstrate detection of biomarkers associated with infectious diseases (UAB)
Task 2.1 Examine and choose infectious diseases biomarkers appropriate for detection within 2-3 ��m spectral range.
Task 2.2 Assemble and validate portable Optical Nose -quartz fork photo-acoustic detection platform via detection of one relevant infectious disease biomarker.

Specific Aim 3- Identify opportunities for new investments in research in this space (subcontract to InnoPace Systems, Inc)
Task 3.1 Hold a series of seminar/webinars with key researchers and seek recommendations. Seminars will include one that engages appropriate experts at the Center for Disease Control (CDC).
Task 3.2 Identify opportunities for new investments in research in this space